Laboratory in Multimedia

The goal of this project is to provide a hands-on laboratory experience in Advanced Methods in Human Computer Interaction including Multimedia, for undergraduate computer science students. Presently, a human computer interface course exists. It is primarily a lecture style course with limited hands-on work using conventional computing environments. The world of human computer interaction has recently seen expansion in new innovative and multi-modal input/output devices (e.g., voice recognition, touch screen, multimedia, virtual reality environments) as opposed to traditional keyboard, display and mouse arrangements. The equipment acquired in this project will provide students with the opportunity to use new dedicated hardware specifically developed for multimedia applications (the use of audio, voice, text and graphics). The significance of the project is to provide a laboratory exploring new worlds of human computer interaction and to provide students the opportunity to explore these worlds using innovative devices on different hardware platforms in a supervised laboratory setting.